Knowledge-Guided Detection of Inner Ear Hair Cells in Digitial Images (Computer and Information Science)

The designer of an automated scene understanding system needs to have a repertoire of methods for the effective representation of knowledge and access to a variety of methods for image processing. In addition, such a design process is helped by an understanding of methods for controlling search in the construction of solutions which combine uncertain evidence from multiple plausible interpretations. One strategy for adding to the available methods for scene understaning is to build successive systems for interpretation in increasingly difficult domains. This research, focuses on a domain that demands capabilities which exceed those of the current techniques. The project is aimed at developing a system for the automatic interpretation of tissue section images of hair cells of the organ of Corti in the inner ear. This domain is complex enough to engender the development of new techniques and tractable enough for study. Domain knowledge is available in the form of expectations for location, orientation, and geometric relations of objects, and in the form of expert protocol for interpretation. Because of the nature of the images, interpretation based only on local features is impractical, providing the opportunity to investigate methods for combining uncertain evidence from several sources under the guidance of domain knowledge. Further, interpretation requires the use of images from several focal planes, giving us the opportunity to investigate symbolic feedback in a combination of both data- driven and knowledge-controlled interpretation methods. Finally, results from human interpretation of slides provide clear standards for evalutiion of the system.